Fast First-Order Methods for Large-Scale Structured and Sparse Optimization

Algorithms for large-scale optimization have traditionally exploited
sparsity and structure in problem data. Many important optimization
problems today, such as those that arise in statistical machine
learning (ML) and in compressive sensing (CS) are extremely large-scale convex
problems with completely dense and/or unstructured problem data.
However, there is often sparsity and structure in the solutions to
these problems. The goal of this research project is the development of
first-order algorithms, including gradient methods for non-smooth functions,
smoothed penalty methods for constrained problems, multiple splitting methods,
alternating-direction augmented-Lagrangian methods, and
block coordinate descent methods, for extremely large-scale convex
optimization problems that take advantage of solution structure and/or
sparsity. Rigorous convergence analysis for these methods will be provided and
robust software implementations will be developed. Although these
methods are expected to have wide applicability, the focus will be on
applications in CS and ML. Specifically, the investigators propose to
develop and analyze new scalable algorithms for (i) CS signal
recovery, including algorithms that are able to exploit more detailed
a priori knowledge in addition to sparsity; (ii) matrix rank minimization, the
matrix analog of CS, and its variants; and (iii) a broad array of ML problems that exploit
the special sparsity/structure of the solutions to these
problems.

The research that is proposed under this grant is focused on the development of
algorithms with provable performance guarantees that are capable of
solving extremely large scale optimization problems whose solutions are
either sparse or have special structure. Such problems arise under the paradigm of
compressive sensing, which allows signals (e.g., radar) and images
(e.g., CT and MRI scans) to be obtained with far fewer measurements
than predicted by traditional theory, various extensions of CS, and in
a broad array of problems in machine learning. All of these problems are
aimed at extracting a "sparse" or low-dimensional true model from a
high dimensional or dense empirical model or data. They have important applications
in extracting information from surveillance video and hyper-spectral images, face
recognition, medical imaging and data mining,as well as many other areas
of strategic interest such as national security and biotechnology.